Corrosion Detection of Embedded or Encased High Strength Steel Rods and Cables Using Time Domain Reflectometry

9700164 Hunsperger the objective of this research is to develop a nondestructive evaluation (NDE) method for detecting corrosion of embedded or encased high strength steel rods and cables. The proposed method involves using Time Domain Reflectometry (TDR) to locate and evaluate corrosion sites. TDR is a well established technique in the field of electrical engineering and has been used for many years to detect breaks in transmission lines. Preliminary numerical simulations indicate that TDR shows promise for being able to detect both surface and pit corrosion of steel strands embedded in concrete. A reliable, accurate, and economical method for detecting the location and magnitude of the corrosion will lead to increased levels of safety for our civil infrastructure, and may enable significant savings to the public by reducing maintenance costs through early corrosion detection.